Update of Global Paleomagnetic Database for Years 1993-1996

9405846 McElhinny The PI will update the Global Paleomagnetic Database for paleomagnetic directions and poles, established by McElhinny and Lock over the years 1989-1991, for the period 1993-1996. This database is a significant and important resource to the paleomagnetic community. ****